2nd Workshop, Task Committee E, UJNR

This award is for the support of the second joint Workshop of Task Committee E of the US/Japan Cooperative Program in Natural Resources (UNJR). The purpose of the second workshop are to: (a) continue to mutual exchange of information on ongoing wind engineering research; (b) encourage and extend the dialogue initiated previously on collaborative research areas; (c) focus and delineate specific projects for collaborative research; (d) visit selected research institutes and projects in Japan concerning wind effects on buildings and public works. The workshop will be held in Tsukuba, Japan in late May 1999.